Federal R&D and Industrial Innovative Activity

This purpose of this project is to investigate the influence of Federal R&D on both the level of private R&D spending in industrial R&D laboratories and the composition of their R&D output. Using firm level data, the authors test empirically the theoretical propositions that 1) the more a company must share its R&D-produced technical knowledge, the smaller is the benefit to the company of self-financed R&D (i.e., the appropriability question); 2) Federal R&D complements private R&D; 3) an increase in company-financed R&D, with fixed levels of Government industr- ial R&D funding, results in a decrease in the level of public sharing of the R&D-produced knowledge; and 4) the degree to which firms share their technical knowledge depends to some extent on Government's criteria for funding industrial R&D. The results should provide further understanding of the Federal role in promoting industrial R&D activities and economic growth. The project thereby will contribute to the Foundation's responsibility to provide a source of information for policy formulation in the area of science and technology.